Doctoral Dissertation Research: Property Rights and Enterprise Productivity in Rural China

SES 0002241
PI: David J O'Brien, Qian Liu

This study examines relationships between property rights systems and enterprise productivity in rural China. It compares stock-sharing cooperatives to village-owned collective systems. Productivity in the two different kinds of enterprises will be assessed through a variety of methods, primarily through structured observation of the collectives and interviews with participants. Results will document some social and economic consequences of Chinese experiments with different social forms. They will show how aspects of the experiments affect material well being and perceived quality of life.